Symposium N, "Polymers in Confined Spaces"; 1997 Materials Research Society Meeting; Boston, MA; December 1 - 5, 1997

9729834 Pachavis Polymers in confined spaces are of increasing relevance in a variety of contexts, ranging from coatings applications (paints, lubricants, adhesives) to nanocomposite materials. This symposium will focus on |addressing recent advances in this field, especially fundamental research that directly impacts practical applications. Excellent examples include the recent interest in clay-based polymer composite materials, thin-film display devices, the role of interfacial bonding on defects in extruded polymer parts, and on optical devices constructed from polymer-inorganic composite materials. The fundamental basis of these applications, including wetting, surface segregation and phase transitions in thin polymer films are also of interest. Both static and dynamic aspects will be stressed. A focused session on smart materials is also planned. Contributed papers will be presented in the following areas: Phase transitions and pattern formation in thin films Nanocomposite materials (including thin-film devices) Dynamics in confined spaces (including dynamics/tribology) Adhesion and compatibilization Wetting and surface segregation Brushes and block copolymers Self-assembled systems ***